Harmonic and Complex Analysis

ABSTRACT (DMS-0099767)

The principal investigator proposes to study the sharp regularity
properties of operators associated to domains of finite type in dimensions
greater than two, and to apply the results to the study of the boundary
behavior of holomorphic functions in these domains. He also proposes to
study corresponding properties on certain nilpotent Lie groups. The
operators under consideration include the Szego and Bergman projections, and
the relative fundamental solutions to the Kohn-Laplacian. In particular, the
principal investigator hopes to find an appropriate metric that controls the
size of the distribution kernel for the Szego projection on diagonalizable
pseudo-convex domains of finite type, and on convex domains. He hopes to
study the boundary behavior of holomorphic functions in certain
non-diagonalizable domains, and in this context, he proposes to study
variants of the Hardy-Littlewood maximal function. Appropriate nilpotent Lie
groups can model many of these problems, and the principal investigator
proposes to study the corresponding convolution operators on the groups. The
distribution kernels of these operators have singularities that are more
complicated than the classical Calderon-Zygmund singular integral operators,
and the problem thus leads to interesting questions in harmonic analysis.

Interesting questions and results in mathematics often arise at the
interface of two or more areas of research, since in such situations, deep
results in one field can shed light on previously intractable problems in
another. The research outlined in this proposal is directed towards
questions at the interface of modern harmonic analysis, several complex
variables, and linear partial differential equations. For more than forty
years these areas have enjoyed a very profitable symbiotic relationship. For
example, attempts to solve the Levy problem in complex analysis led to the
development of deep results about hypo-elliptic partial differential
equations, and these problems, in turn, led to developments in harmonic
analysis on nilpotent Lie groups such as the Heisenberg group. Many of these
related results dealt with integral operators that are modeled on the
classical singular integrals such as the Hilbert transform and the Riesz
transforms whose study goes back to the middle of the twentieth century. In
recent years, it has become clear that new problems in complex analysis
require the understanding of new kinds of operators in which the
singularities of the kernel are considerably more complicated than the
classical singular integrals. The research described in this proposal is
directed toward understanding these more complicated situations.